Supplement to Connection One: IUCRC Program Technological Breakthroughs

This award funds an evaluator for the Industry / University Cooperative Research Center (I/UCRC) for Communication, Circuits and Systems to study the engineering and scientific breakthroughs and innovations occurring in all currently awarded Industry/University Cooperative Research Centers.